Models and Algorithms for Quality and Accuracy of Spatial Data in Infrastructure Engineering

The nation's civil infrastructure consists of, among other things, buildings,
roads, bridges, and utilities. These infrastructure components are integrally
linked to our society and our environment. Increasingly, we are relying on
computer tools and databases for information about our infrastructure to enable
us to better develop, use, and maintain it. On an ongoing basis we are creating
infrastructure information management systems (IIMS), even though we often do
not refer to them as such. Two key data items in any infrastructure information
management system include (1) location of a component and (2) the resulting
spatial relationships among components that result from their locations.
Additionally, attribute data items describe the characteristics of the
components themselves.

A number of computer tools have emerged that are useful in the realm of
infrastructure information management. Prominent among these are geographic
information systems (GIS) and database management systems (DBMS). Historically,
GIS systems have been optimized to store, manage, and process graphical spatial
data and DBMS systems have been optimized to store and process tabular
attribute data.

To gain additional IIMS functionality and to support more useful analysis, we
propose to investigate linkages between spatial and attribute information. Such
tools or capabilities would improve infrastructurerelated problem analysis as
well. The key problem, even with recent DBMS/GIS linkage advances, is that
there are no fundamental models and algorithms to give users, analysts, and
decision makers information about the quality and accuracy of the data being
provided, analyzed, and used. This critical shortcoming is the topic of this
proposal.

We propose to develop (1) conceptual models and algorithms for assessing and
quantifying positional-data error and (2) methodologies for performing
transformations between different location referencing systems. We will test
the models, algorithms, and methodologies using transportation case studies.

The objectives of this project can be summarized as follows:

1. To identify the positional-data quality needs of common transportation
applications (application assessment).

2. To identify the delivered level of accuracy attainable by various scientific
location measurement instruments and technologies (accuracy of technologies).

3. To develop models for relating needed and delivered accuracy levels
(relationship models).

4. To develop models and algorithms for quantifying and qualifying spatial data
accuracy (accuracy models).

5. To develop methodologies for assessing the impacts of positional-data
accuracy in translations between measurement techniques and spatial referencing
systems (translations).

Meeting these objectives will have the following significant project outcomes.
We will better understand the relationship between the data accuracy needs of
users and applications on one hand, and data accuracy levels of measurement
technologies on the other. We will be able to reduce the level of uncertainty
in transportation (and infrastructure) decision making. We will be able to use
greater accuracy to improve reliability, functionality, utility, and safety of
transportation (and infrastructure) systems. The models and algorithms can be
used to develop new tools, or enhancements to existing tools, to improve
spatial data representation, understanding, analysis, and processing.